STORMCHASERS

"Stormchasers" is a 35-minute, IMAX/OMNIMAX film to be produced, exhibited, and distributed by the Museum Film Network, NOVA/WGBH Boston, and MacGillivray Freeman Films-the same team responsible for the critically acclaimed film "To the Limit." "Stormchasers" is a tale of scientific discovery and natural wonder that will take audiences on a journey around the planet to encounter the origins of the earth's weather patterns, to experience our most extreme storms (monsoons, hurricanes, blizzards and tornadoes,) and to witness scientists who study and predict weather events. Using a combination of conventional IMAX documentary filmmaking methods, computer animation, and unique photography, the film will depict the intricate relationship between the drama of nature and the efforts of humans to pursue the systematic understanding of the natural world. The film and its ancillary materials will be offered to the 34 space theaters located at U.S. science museums in 1994-1995. Educational materials will be developed to extend the film's reach into the classroom. Special viewing programs will be offered at science museums, targeting minority, disadvantaged, and female youth and their teachers.